Ion Scattering Studies of Surface Structure and Growth

9408578 Gustafsson The structure of clean and adsorbate covered surfaces using medium energy ion scattering (MEIS) and scanning tunneling microscopic (STM) will be determined. The surface vibrational amplitudes of well ordered metal surfaces of silver and copper will be measured in the anharmonic regime and correlated with structural changes. Further studies will focus on systems that undergo displacive surface phase transitions and metal overlayers on oxides. An atomistic understanding of these effects can have a beneficial impact on a large number of areas of applied nature, such as magnetic films, chemically passive coating, tribology, and bimetallic catalysts. % % % % The goal of these studies is to determine the geometric and vibrational structure of clean and adsorbate covered surfaces. Our main experimental technique is medium energy ion scattering, a very powerful, but not widely available, quantitative method for the determination of surface structure. The specific systems to be studied include low index surfaces of silver and copper, as well as metal overlayers on oxide surfaces. The experiments will contribute towards an understanding of emerging technologies, like bimetallic catalysts, optical and magnetic films, chemically passive coatings and tribology. ***